CAREER: Testing Core-Based Systems Using Precomputed Test Sets

9875324 Chakrabarty, Krishnendu
Embedded cores are being increasingly used in large system-on-a-chip (SOC) designs. These complex, pre-designed functional blocks facilitate design reuse, allow greater on-chip functionality, and lead to shorter product development cycles. However, the increased use of cores has greatly exacerbated the testing problem. This research is directed at several fundamental issues in core testing using precomputed tests. In order to maintain intellectual property, core vendors do not reveal implementation details; instead they only provide precomputed test sets, which must be effectively utilized by the system designer. Research activities being carried out under this grant include: (1) Built-in generation of precomputed test sets for at-speed core testing; (2) Synthesis techniques for increasing transparency and test access, and the design of transparent space compactors for non-modeled faults; (3) Design of efficient test access architectures and optimal test scheduling for core-based systems.